EHS: Constraint-based Static Analysis of Embedded and Hybrid Systems

Manna - Abstract:

Static analysis methods play two vital roles in the design of embedded
systems: validation and optimization. A static analysis technique
deduces properties of a given system by analyzing its description.
Its applicability to a particular system hinges upon its ability to
deduce interesting properties while balancing the computational cost.
This research studies a novel class of techniques for
static analysis that has the potential to significantly increase the
scope of static analysis.

The methodology, called constraint-based static analysis, diverges
from previous work on static analysis. Whereas traditional
propagation-based static analysis methods concentrate on iteratively
constructing better approximations to the desired properties, the
proposed approach directly solves for the properties. Given a class
of assertions represented parametrically by a template property, a
constraint-based method generates and solves constraints on the
unknown parameters. This shift in strategy seeks the following
advantages:

* It replaces heuristic guesses with a precise and predictable
approach to approximation. Traditional approaches frequently
require the use of heuristic guesses via widening and narrowing
operators, which has limited their applicability.
* In contrast to propagation-based methods, the new methods can be
readily optimized to handle special cases effectively.
* It enables a natural extension to the analysis of nonlinear
discrete and hybrid systems.
* The constraint-based methods for real-time and hybrid systems avoid
explicitly solving differential equations, making them applicable
to a larger class of systems.

The expected benefits of this research are many. Static analysis has not seen a major breakthrough in a decade. The project hopes to revive interest in static analysis and encourage the use of mathematical techniques such as Groebner bases. This research also links constraint solving technology to verification, thus opening
opportunities for involvement of the constraint solving community
in problems pertinent to the design of embedded systems. Finally, the
results of this research bring closer the feasibility of using formal proof of safety properties in certifying software for safety-critical devices.